Mathematical Sciences: Asymptotic Behavior of Dependent Sequences of Random Variables and Applications

This research involves the investigation of the asymptotic properties of sequences of random variables with various types of dependence. By relating weak dependent sequences to semiamarts and demimartingales we shall clarify some aspects of the almost sure convergence of these sequences. Other part of this research will study two estimators of the variance of the sample mean based on dependent data. These estimators are suggested by blocking techniques and robust statistical procedures such as the bootstrap and the jackknife. The estimators can be used as selfnormalizers in the Central Limit Theorem. One of the main problems of statistics is to provide interval estimates for some unknown parameters. These confidence intervals are constructed based on an estimator of the parameter and an error given by the variability of this estimator. The purpose of this research is to study this problem in the case when the data is dependent.